Molecular Biology and Biosynthetic Regulation of the GnRH Receptor

Higher organisms are dependent on precise cell to cell communication. Cells communicate via specific receptors on their surfaces. One important receptor system in that for gonadotropin releasing hormone (GnRH). This receptor is found in the pituitary gland at the base of the brain and controls, among other things, the timing of the menstrual cycle. An important, but incompletely understood aspect of this cell to cell communication, concerns the factors that control the number of receptors present on the cell. If there are more receptors, the cell will manifest a greater response. However, until recently, studying the synthesis of the GnRH receptor has been difficult. A variety of new techniques now makes study of this area possible. The planned research will use a combination of approaches, including molecular biology and electrophysiology, to measure the level of the gene products for the GnRH receptor in the cell and to investigate how that level is controlled. This will provide valuable information about the regulation of the amount of this receptor as well as other similar receptors.//